2000 Oceanographic Technical Services

0075142
Findley
This award to University of Miami provides shipboard technical support, shore-based support, as well as maintenance and calibration of shared-use scientific instrumentation, for researchers using four oceanographic research vessels. The vessels include R/V Smith, operated by the University's Rosenstiel School of Marine and Atmospheric Sciences, and R/Vs Johnson, Link and Sea Diver, all operated by Harbor Branch Oceanographic Institution. The four vessels operate as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of oceanographic studies from these four vessels, principally in the western North Atlantic Ocean and equatorial Atlantic regions, beginning in 2000.
***